Domain Independent Vision-Based Navigation

The goal of this research is to develop methods for robust, domain-independent vision-based navigation suitable for both structured and unstructured environments. Visual tracking is used to monitor a set of image features (markers), and vision- based control is used to to guide the robot's motion from the image trajectory of the markers while avoiding obstacles. An environment is represented as a graph (map) which may be constructed under human control (e.g. giving the system a tour) or autonomously as the system explores. As the robot moves during the process of mapping, markers are automatically selected from the video stream and tracked. Rather than using prestored models of landmarks, markers are selected based on image content using a suite of domain-independent operators. The selected markers will be visually distinctive, unique within the image, and stable under varying viewpoint and illumination. During passive map making, the robot is taken on a tour, and it instantiates a graph representing the paths that the robot can follow; recognition is used to annotate the map. During active mapping, the robot systematically explores the environment and incrementally constructs the graph representation. These algorithms will be tested empirically on two mobile platforms in both indoor and outdoor environments.